FIRE UP (Faculty Integration, Research, and Engagement in Urban Polynesia)

Kapiolani Community College, University of Hawaii, recognizing that our continued success is contingent upon building a formal and institutionalized “STEM enterprise” and developing more engaged STEM faculty who can offer compelling courses as well as mentor students in undergraduate research, the College proposes to create the organizational, administrative and programmatic excellence and infrastructure needed to support such an enterprise. Our long-term goals, therefore, are to: 1) institutionalize, improve and sustain a formal STEM enterprise; and 2) increase the number of STEM faculty engaged in producing more Native Hawaiian and other STEM degree completers. This I3 project will integrate faculty innovation within a formal, sustained, always improving STEM Program tied closely to the strategic and long range directions of the College.